Technology, Economics, Active Learning, and Mathematics

This project to combine Technology, Economics, Active learning, and Mathematics (TEAM) integrates introductory economics with the mathematics needed for economics. The focus is on an active, cooperative learning approach in which instruction in basic economics is fully integrated with those mathematical topics needed for understanding of economic concepts. Twenty selected College of Business freshmen explore, in a computer laboratory setting and under the direction of the principal investigators, major concepts of economics and apply suitable mathematical tools. They strengthen their understanding of the role of mathematics in business and industry and broaden their understanding of basic economics, and they present their findings in a series of research reports. TEAM meets daily in laboratory and group problem-solving sessions to investigate a series of economics questions and to learn to employ the mathematical and computer methods required for their solution. TEAM covers the material normally presented in two semesters of introductory economics as well as two required mathematics courses involving fundamentals of calculus, the mathematics of finance, and introductory statistics.